CISE 1994 Minority Graduate Fellowships Honorable Mention for Melody Ivory

9423174 Demmel Applicants to the NSF 1994 Minority Graduate Fellowship competition who were awarded "Honorable Mention" status and who enrolled in a computer science or computer engineering graduate program at a U.S. university were eligible to apply to the CISE Directorate for this special award. The purpose of the award is to assist the student in both research and education. The award is made on behalf of the student to the institution with the student's advisor designated as principal investigator. ***